Connection One: Telecommunication Circuits & Systems (I/UCRC)

The University of Arizona joins Arizona State University in the multi-university Industry/University Cooperative Research Center named Connection One: Telecommunication Circuits and Systems. This center has the potential to have a significant impact on the broader telecommunication industry, which has become an essential element of the national economy. Because of the increasingly multidisciplinary nature of telecommunication research projects, an integrated research effort that brings together researchers from a number of technical areas is essential for achieving significant technological advances. Connection One provides a collaborative environment that will facilitate this research effort.